RIA: User Interface Toolkit Architectures for Distributed Multimedia Applications

To investigate two architectural toolkit components to support distributed and collaborative multimedia applications: 1) multimedia control and collaboration via distributed event models, and 2) embeddable applications as a high level replacement for widgets. Distributed event models are studied and tested under different loads in three categories: centralized dispatcher, dispatcher clusters, and multiple dispatchers. Collaboration is considered using data sharing, input-sharing, and output sharing. The use of embeddable applications extends widgets to both programmatic control and user interface control. The difference of embeddable applications with ordinary widgets is that embeddable applications can be used directly or can be composed into larger applications and then possibly replaced by a higher level interface. The project includes the design, implementation, and test of a general embeddable application class along with several specific embeddable applications.